The Decisions of Firms: Modeling and Applying Measures of Markups, Inventory Accumulation and Advertising

This is a Career Advancement Award funded under the Research Opportunities for Women Program. This award will allow the investigator to expand her research activities from the relatively narrow area of applied production theory, and to apply her expertise to the wider consideration of firm behavior and performance in different market contexts and countries. More specifically, this project will involve studying price markup behavior and firm decision-making regarding inventory investment and advertising. These three aspects of firm behavior have important impacts on the observed economic performance of industries and countries, both in terms of their impacts on the actual trends of indicators, such as productivity and capacity utilization, and also in terms of the appropriateness of the measures used to represent these trends. Firm behavior and the implications for overall economic performance will be analyzed and compared for the U.S., Canada, and Japan.